Engineering Research Equipment Grant: Real Time Control Applications Laboratory Equipment

This project provides resources to procure equipment to support research in multivariable control systems, distributed parameter systems, and robotics. The equipment comprises a control computer, actuator hardware, sensors, and a vibration isolation table. The first research topic focuses on the algebraic geometry design of multivariable control systems with structural and robustness constraints. The equipment would allow for the demonstration of the control design laws obtained from the algebraic geometry approach. The second research topic addresses the development of a passivity based approach to the stability analysis and controller design for distributed parameter systems. The equipment is used for the experimental validation of the design tools determined in this study. The equipment is also used for the third research topic to test control concepts for flexible robotic systems.